Scholarships for Tech Valley Scholars in Computational, Mathematical, and Physical Sciences

The Computer Science and Physics & Astronomy Departments at Siena College, through their Scholarships for Tech Valley Scholars in Computational, Mathematical and Physical Sciences (CMPS), are providing scholarships for a total of forty talented undergraduates with financial need who are majoring in Computer Science, Mathematics, or Physics. By increasing the number and quality of STEM majors through focused recruitment, retention, and career placement practices, the Tech Valley Scholars (TVS) program is helping to meet regional workforce development needs in New York's greater Hudson Valley.

Key project elements include cohort support activities centered on a TVS one-credit seminar each semester, continuous mentoring and guidance of students throughout the program, and creation of an innovative learning environment using the latest developments in STEM education research. As TVS participants, undergraduate students gain experience working on teams and developing skills and perspectives that are necessary for innovations in the application of STEM technologies.